Simulations of Strongly Correlated Quantum Systems

Novel computational methods for quantum statistical models, including models of solid helium 3 and other frustrated spin systems, models related to Boson localization relevant to superfluid helium 4 in porous media, and models for strongly correlated electronic materials including the High Temperature Superconductors. In the Boson localization problem the study of thermodynamics and dynamics will include utilizing known algortihms but with implementation and optimization on massively parallel computer architectures. Finally, for the strongly correlated electron problems work on the "marriage" of Monte Carlo and many body theory methods to avoid the problems of the restricted parameter and temparature regime to which fermion Monte Carlo applies. Overall, studies will utilize methodologies ranging from improved path integral Monte Carlo algorithms to new variational methods and methods based on generalizations of the decoupled cell Monte Carlo method. The hardware will include both pipelined and parallel supercomputer architectures.